Neurotransmitter Receptor Changes with Fever

This research planning grant will allow Dr. Vaughn to conduct preliminary research on the relationship between receptor biochemistry and thermoregulation. This is an important topic and this small award will allow her to develop the basis for an expanded independent research program.